Enhancement of the Long-term Data Base Program at the University of Wisconsin-Milwaukee Field Station

Research at the University of Wisconsin-Milwaukee (UWM) Field Station was begun in 1967. Since then the UWM Field Station has grown steadily in research use and productivity. The attractiveness of the Station for research can be attributed to the quality of its natural areas and facilities, the baseline information available, ongoing research, its location, and the level of assistance and on-site support provided by the staff. Located near Milwaukee, Madison and Chicago, the 850 ha research area includes one of the finest remaining examples of beech-maple woods in Wisconsin, nearly all of the predominant wetland vegetation types found in northwestern North America, old fields and agricultural fields. Long-range plans for the Field Station research program emphasize: 1) development of the Station and the Cedarburg Bog as a wetlands research center, 2) maintenance of its strong program in avian behavioral ecology, and 3) experimental plant ecology, population biology, and ecological genetics. The Station has an extensive and diverse long-term data base that has been developed over 20 years. Expansion of the data base and enhancement of its utility and accessibility are currently being stressed. This project will support replacement of the Station's outdated and increasingly unreliable weather station in order to maintain and improve the quality of the data base and to fulfill research program plans.